Dynamics of Simple Systems in Chemistry and Physics; Newport, Rhode Island; July 11-16, 1999

This conference will bring together scientists from chemistry and from atomic, molecular and nuclear physics to discuss topics of common interest. The cross disciplinary interactions at this conference are expected to lead to new ideas and perspectives, particularly for the young investigators for whom support is requested.